Algebraic K-theory, Motivic Cohomology and Homology of Linear Groups

The proposal concerns the investigation of motivic cohomology of
schemes and its relationships to algebraic K-theory. One part of the
project proposes an investigation of generically contractible sheaves.
The investigator intends to use the properties of such sheaves in
an attempt to show that Grayson motivic cohomology coincides with
Voevodsky one and hence Graysons construction gives another
approach to the dvelopment of the motivic spectral sequence.
Another part of the project concerns the Friedlander-Milnor Conjecture.
The investigator expects to develop new methods for the proof
of the rigidity property for homology of the finite general
linear group. Finally the investigator plans to figure out
what if anything is missing in the proof of the Bloch-Kato Conjecture
modulo an arbitrary prime integer.

This research proposal is in the area of mathematics known as
algebraic geometry. The objective of algebraic geometry is to
gain a deep understanding of the geometric properties of
solutions to polynomial equations -- while everyone sees
quadratic equations in school, equations of higher degree or
more variables become much more subtle. Yet, because
computer and robot computations are inherently finite
approximations to the continuous "real world," understanding
polynomials is vital to such endeavors.